Physical Oceanography of the Amazon Frontal Zone

AMASSEDS (AMAzon Shelf SEDiment Study) is a large collaborative effort to study the freshwater discharge of the Amazon River over the adjacent continental shelf. Both geologists and chemists will work together with physical oceanographers to address processes involved in the transport of sediment and dissolved chemical species. The focus of this component will be on the water structure, circulation, internal mixing, and bottom boundary-layer processes in the frontal zone where strong gradients of salinity, density and suspended sediment form. Shipboard hydrography and current measurements, a moored current array, satellite-tracked drifters, and satellite AVHRR (Advanced Very High Resolution Radiometer) data will be used.